Research Experiences for Undergraduates Site at Mechanical and Aeospace Engineering Department, Syracuse University

An REU site is continued. Research support is awarded to motivated and academically superior engineering undergraduates in their junior and senior year. The program has both the summer and academic year components. At least three of the eight REU participants will be selected for summer participation from applicants from colleges and universities other than Syracuse University. A particular focus of recruitment effort will be to attract participants from women, minority and disabled student groups. For the current (1989-90) REU project, two of the eight participants were minority students and one of the minority participant was a woman. Seven faculty members in the mechanical and aerospace engineering Department have expressed interest in supervising the research efforts of the REU participants. The areas in which the faculty members are actively engaged in research span experimental and computational fluid mechanics, gasdynamics, aerodynamics, heat transfer, helicopter aerodynamics and aeroelastic stability, aeroacoutics, noise control, automotive engineering, paper technology and robotics. A REU participant may select research problem in any one of these research areas of interest to him or her. * The expected profile and the accomplishments of the REU participants for the current (1989-90) project are outlined under "Results from Prior NSF Support" in the Narrative pp.9-12, with additional details in Appendix VI, pp. 16-21. The profile of the REU participants for 1990-92 is outline under item 16. (pp. IX-X). ** Under the research interests of each faculty supervisor, some typical research problems to be suggested to REU participants are listed in the Narrative (pp. 3-9).